RAISE: IHBEM: Inclusion of Challenges from Social Isolation Governed by Human Behavior through Transformative Research in Epidemiological Modeling

Project INSIGHT is a collaborative effort to develop novel and transformative research aimed at incorporating human social, behavioral, and economic interactions in mathematical epidemiological models. Project INSIGHT addresses two sets of questions about behavioral responses to social isolation during the COVID-19 pandemic: (1) How does compliance with isolation policies drive disease mitigation outcomes? and (2) Does social isolation lead to unanticipated negative social outcomes, and if so, how? Social isolation and individual distancing are key tools in mitigating large-scale infectious disease outbreaks. Yet, social interactions are crucial for the health and prosperity of individuals and their communities. Social isolation is associated with negative outcomes such as substance use and abuse, domestic violence, and reduced mental and physical health. These negative effects are often pronounced in rural, low-income, and older communities. The primary goal of INSIGHT is to model both positive and negative effects and thereby improve our understanding of the course of the COVID-19 pandemic and its long-term effect on society. This project is funded jointly by the Division of Mathematical Sciences (DMS) in the Directorate of Mathematical and Physical Sciences (MPS) and the Division of Social and Economic Sciences (SES) and the Division of Behavioral and Cognitive Sciences (BCS) in the Directorate of Social, Behavioral, and Economic Sciences (SBE).

Project INSIGHT develops realistic epidemic models incorporating behavioral responses of compliance and adherence as follows: (1) Isolation compliance. Using a classical segmentation of populations into compliant and non-compliant groups, a switching function is defined to account for changes in behavior. Games with appropriate payoff functions that inform individuals’ behavioral choices are used. (2) Opioid misuse treatment adherence. A model according to severity of substance use disorder is created, implementing treatment adherence with game-derived utility functions and incorporating drug-seeking behavior of affected individuals, Model parameters like recovery and deaths are accounted for via well-defined behavioral functions. (3) Domestic violence. Focusing on intimate partners, economic-dependent functions are used to capture partners’ choices such as abuse, forgiveness, seeking help, or leaving the domestic violence cycle. The modeling efforts use data from several national and local sources. The outcome of Project INSIGHT modeling efforts is a synthetic, in-depth view of the balance of positive (reduction of disease transmission) and negative (substance abuse, domestic violence) implications of social isolation as a response to pandemic situations.